Simulation-Based Learning Systems for Environmentally-Benign Semiconductor Manufacturing

Abstract
EEC-9978123
Gary Rubloff, PI

This award provides funding from the Engineering Research Centers (ERC) Program to the self-sustaining NSF ERC called the Institute for Systems Research (ISR) at the University of Maryland, College Park, and the NSF/SRC ERC for Environmentally- Benign Semiconductor Manufacturing (CEBSM) at the University of Arizona, Tucson, to jointly develop a portfolio of interactive, computer-based simulator learning modules to support education in the design for environment (DFE). These modules will be developed by application domain experts at CEBSM and software and cognitive science developers of simulator-based learning systems at ISR. The modules will incorporate existing simulator codes developed by CEBSM as a part of their research program in areas such as water purification, water usage in wafer rinsing, and the water recycle process. Students will be able simulate an entire system as well as explore the design of subsystems. The modules will incorporate components that are appropriate for learning at the high school, undergraduate and graduate levels and by practicing engineers and scientists. The modules will be evaluated at various educational levels, including testing by industry experts, and disseminated among the CEBSM institutions.